Using Saccharomyces to Examine Models of Biparental Genomic Recombination

theories of the evolution of sex can be divided into those concerned with the origin of the sexual process and those concerned with its maintenance once it has arisen. Here we propose an experimental test of both types of the theory. Maintenance theories that assume a role for recombination in generating rare useful genotypes will be tested by competing diploid yeast strains with each other, strains that differ only in their ability to undergo recombination. The experimental design will permit two classes of these models to be examined, those that assume selection coefficients are constant (the Fisher-Muller models of Felsenstein's classification (Felsenstein, 1988)) and those that assume they are variable or cyclic (Felsenstein's Sturtevant-Mather models). Both processes are likely to be important; we will attempt to determine which is more powerful in our experimental system. Asexual strains will be competed directly with isogenic sexual one, to determine the range of conditions under which strains what are capable of recombining sexually prevail. The type of genetic variability that accumulates under these conditions, and the rate at which it accumulates, will also be measured. The origin of sex theory that will be tested is the DNA repair hypothesis of Bernstein and Michod. We will test to see whether the ability to recombine meiotically confers a competitive advantage upon sexual strains to ionizing radiation, which induces double strands and breaks. Double stranded breaks are essential to the DNA repair hypothesis, which postulates that in early biotic environments, double stranded breaks imposed sever selection pressures upon organisms. The only way to repair such breaks was in certain lineages. We will also examine whether, and how quickly, increased rates of recombination can be selected for in heavily mutagenized populations that either do or do not exhibit an alternation of generations, and whether this selection can affect both mitotic and meiotic recombination.